Probability and Algorithms

The PI's research includes the use of fixed-point methods,
the method of moments, and complex-analytic singularity analysis to
study additive functionals on random trees, which arise in the
analysis of divide-and-conquer algorithms. It seeks to explain,
using continuum random trees and Brownian excursion or otherwise, an
invariance of distributions observed across various random-trees
models. A refined analysis, under the so-called random permutation
model, of the periodic asymptotic distributional behavior of
additive functionals for trees with large branching factor also
extends to urn models and multi-type branching processes.
Additionally, the research encompasses digital analyses and
improvements of algorithms for searching and sorting, such as the
widely-used Quicksort; use of a perfect simulation algorithm
pioneered by the PI to estimate mixing times of Markov chains
statistically; and the novel application of Mellin transforms to the
study of small deviations (small-ball probabilities) for Gaussian
random fields.

The research to be performed lies at the interface of probability
and computer science. It involves the design and application of
efficient algorithms for computer simulation from complicated
probability distributions; the probabilistic analysis of algorithms
and data structures arising in connection with such basic and
important algorithms as Quicksort, which is the standard sorting
procedure in Unix systems and which, in a computer science review
paper in 2000, was cited as one of the ten algorithms with the
greatest influence on the development and practice of science and
engineering in the last century; and the novel application of a
common analysis-of-algorithms tool ("Mellin transforms") to an area
of probability ("small deviations", involving the estimation of the
chance of certain uncommon events).